The Kansas City Regional Innovation Alliance

0090578
MacQuarrie

This award is to the University of Missouri Kansas City to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners include the University of Missouri Kansas City; University of Kansas Medical Center Research Institute; Kansas City Life Sciences Institute; University of Missouri Columbia; Midwest Research Institute; Center for Business innovation.

Proposed Activities
The activities in this award include training scientists, business people and graduate students in technology-based entrepreneurship; developing and implementing a system for identifying and evaluating new discoveries and technologies that may have commercial value; developing a supporting infrastructure to foster and sustain innovation; commercialization.

Proposed Innovation
The innovation goals include education of scientists, businesspeople, and graduate students in technology-based entrepreneurship and creation of a regional partnership for innovation that enables transformation of knowledge in life sciences into innovations that create new wealth. A system to identify ideas that have commercial potential will be developed. A supporting infrastructure to foster and sustain innovation to commercialization will also be developed.

Potential Economic Impact
Education of personnel plus technology transfer that might lead to economic activity will have significant economic impacts.

Proposed Societal Impact
Innovations that benefit health care will result. Training of personnel for high tech jobs in the health care industry and new jobs in the health care industry will result.